Rural Systemic Initiative Research Studies

This proposal seeks to examine the effects of the Rural Systemic Program in
Category I and Category II. The evaluation methods include the careful selection of a
team of senior evaluators and doctoral/post-doctoral students whose expertise is cross-sectional.
We propose that the team design instruments using GPRA format, wherever feasible, to provide a summative
evaluation of The Program. Because the RSI program is the most recent, we propose that each project is
targeted for participation in one or more studies, including the current planning sites and
the unsuccessful planning/implementation sites. The program design allows the team to
integrate expertise and to share findings in a timely manner. The project relies on data
gathered as Core Data I and Core Data II as well as the collection of evaluation specific
observations, interviews, and surveys. The project also provides for wide dissemination of the results through professional organizations, scholarly publications, and local, state, national news media.